Japanese Manfacturing Management and Plant Effectiveness: Universal Applicability or a Contingency Approach?

This is a Minority Research Initiation award for developing a research proposal involving the applicability of Japanese manufacturing culture and management to U.S. manufacturing. The management and organization of manufacturing is widely recognized as a major problem in the drive to increase U.S. manufacturing productivity. This award will lead to a research proposal which will investigate the transferability and applicability of Japanese practices to the U.S. setting.